New Method of Oxidation - Reduction of Hazardous Organics

An evaluation of the feasibility of a new method of oxidation reduction of hazardous organics by the use of a sacrificial metal in a spontaneous process triggered by cementation of a noble method will be performed. Effects associated with major process parameters such as pH, mixing, atmosphere, etc. on the efficiency and rates of oxidation reduction of various classes of hazardous organics will be evaluated. The understanding of fundamental relationships between the process variables and the destruction efficiency of hazardous organics established during this study will be used for an intelligent design and application of the new method for various waste types. Accordingly, this project will establish the basis for a large scale demonstration of the proposed new method. The main benefit of the project to the public is in that, that a new destructive treatment method of hazardous organics will be available to alleviate the national hazardous waste problem. Benefits to the industry include cost savings and risk reduction in handling hazardous wastes.